Collaborative Research: Experimental Verification of Stable Isotope and Trace Metal Incorporation in Living Planktonic Foraminifera

9416595 Spero This project will continue experimental culturing of planktic foraminifera to determine the biogeochemistry of stable isotopes and trace elements incorporated in the shell. This kink of data is widely used by people who reconstruct past ocean circulation and chemistry from marine microfossils, and yet many of the assumptions about the controls on shell chemistry have never been tested. ***